Decadal Survey of Ocean Sciences

The National Academy of Sciences Division on Earth and Life Studies? Ocean Studies Board will assemble an expert committee to provide advice and a perspective from the ocean community. The project is entitled “Decadal Survey of Ocean Sciences: Guidance for NSF on National Ocean Research Priorities”. The committee for the Decadal Survey of Ocean Sciences 2015 (DSOS) will develop a list of the top ocean science priorities for the next decade in the context of the current state of knowledge, ongoing research activities, and resource availability. The DSOS committee’s report will present a compelling research strategy for increased understanding of the oceans over the decade 2015-2025.

Broader Impacts

NSF would benefit from enhanced community engagement and input on long range research priorities and strategies to optimize investments in the ocean sciences. The goal of this study is to begin a community-based, regularly recurring, decadal survey approach to the visioning and setting of NSF-funded research priorities in the ocean sciences within the context of likely available resources.